Studies in the Theory of Competitive Market Allocation

General equilibrium analysis of incomplete markets is currently one of the most active and productive areas of research in economic theory. This line of research captures important market features assumed away by traditional economic models. This body of work has proven especially valuable in studying excess market volatility. The investigator was one of the pioneers in this area and is responsible for much of the key work. This grant provides renewed support for the study of two basic kinds of problems in the theory of competitive market allocation: First, the formulation and analysis of institutional frictions on financial markets, and second, the introduction and analysis of extrinsic uncertainty in perfect foresight economic models. The first part consists of systematically refining the specification of financial instruments or market restrictions in models of incomplete markets. More broadly, the project looks into problems of extending general equilibrium models with frictions on financial markets to incorporate, on the one hand, endogenous provision of the types of financial instruments, and, on the other, endogenous determination of the forms of market restrictions. The second part introduces and analyzes extrinsic uncertainty in perfect foresight economic models. Extrinsic uncertainty is just uncertainty which only influences allocation through the way agents perceive the process of market price determination and not through any direct influence on underlying economic fundamentals, preferences, endowments or technology. Extrinsic uncertainty theory is called sunspot theory after a famous example in which the beliefs of economic agents that sunspots influence the market were shown to cause sunspot equilibria, i.e., market equilibria determined in part by sunspots. The project provides a comprehensive overview of the various diverse circumstances under which market economies are not immune to sunspots. The project shows how incomplete markets are linked to the emergence of sunspots and how sunspot equilibria differ from nonsunspot equilibria. Sunspot theory has attracted considerable attention because it offers a rigorous explanation of market instability and indeterminacy. The results of this project will help us determine whether or not extrinsic uncertainty can explain the volatility of financial markets observed in the October, 1987 stock market crash. By linking specific market institutions to the emergence of sunspot equilibria, this project could provide new insights into institutional changes that would improve market performance.